Molecular Basis of Stage-specific Gene Activation

In holometablous insects the pattern of gene expression in many tissues changes dramatically at the metamorphic molt. The larval fat body cells in Galleria mellonella synthesize several larval hemolymph proteins but after metamorphosis into pupa these fat body cells cease synthesis of these proteins. The same fat body cells synthesize vitellogenins in pharate adult females. Dr. Kumaran has showed that Lhp76 is expressed all through larval life whenever ecdysteroid titers are low and that Lhp82 is expressed during the period when both ecdysteroid and juvenile hormone titers are low or undetectable. Northern analysis showed that these genes are not expressed in day- 2 or older pupae, pharate adults or adults. This apparent irreversible inactivation of Lhp genes after metamorphosis and the concomitant activation of vitellogenin genes can be explained, in theory, on the basis of changes in the population of trans acting transcriptional factors in fat body cell nuclei. Dr. Kumaran has the entire transcription unit and 4 to 5 kb of the upstream sequences and 2 to 3 kb of downstream sequences of Lhp76. He proposes to characterize this and the Lhp82 gene in detail and identify the cis acting regulatory elements by in vitro transcription assays and by transient expression assay in primary cultures of Galleria fat body cells or by studying their expression in tissue culture cells of Lymantria fat body following stable integration. In addition, if found suitable, transgenic flies bearing Lhp gene constructs will be used to identify the regulatory elements. The identity of the regulatory elements will be further defined by DNA footprinting and studies on metamorphosis associated changes in the trans acting factors, using filter binding and gel retardation assays will be initiated. %%% This proposal will look and how gene expression changes are regulated during metamorphosis in insects. This is a dramatic developmental change and therefore offers a good model system for studying the hormone induced alterations in gene expression.